2017 Artificial Molecular Switches and Motors: Gordon Research Seminar (GRS)

This project, being led by Prof. Amar Flood, provides an opportunity for domestic graduate students to participate in a Gordon Research Seminar (GRS) on June 10-11, 2017 at Holderness College in New Hampshire. This project aims to promote the involvement and collaboration of young scientists in the field of molecular switches and motors. A better fundamental understanding on how to control the movement on molecular length-scales could impact other fields such as drug delivery, molecule-scale electronics, and robotics.

The Macromolecular, Supramolecular and Nanochemistry Program and the Chemical Structure, Dynamics and Mechanisms B Program of the NSF Division of Chemistry support the participation of about 30 domestic students (including women and members of underrepresented groups) in the GRS on "Artificial Molecular Switches and Motors". This GRS aims to encourage students to get involved in discussions in scientific meetings, to provide an environment for students to establish informal networks with their peers, and to forge life-long working relationships. In addition, students have the opportunity to develop leadership and organization skills through the involvement in the implementation and planning of the GRS.